Minority Postdoctoral Research Fellowship for FY 2002: Third Year Extension

This action funds a third year extension of an NSF Minority Postdoctoral Research Fellowship. The research investigates the molecular mechanisms underlying the modification of feeding behavior by means of environmentally induced changes in the taste receptor cells of Manduca sexta.